LSAMP - Peach State Louis Stokes Alliance for Minority Participation

Peach State Louis Stokes Alliance for Minority Participation
Project Summary

The Peach State Louis Stokes Alliance for Minority Participation (PSLSAMP) is a collaborative
effort sustained by seven universities in Georgia to increase the number of underrepresented
minority students statewide who complete undergraduate degrees in science, technology,
engineering and mathematics (STEM) fields. Georgia is experiencing explosive population
growth while embracing policies that favor economic development in strategic, technology-
oriented fields. There is a compelling need for college graduates with strong technical skills.
There is also wide recognition that underrepresented minorities must participate significantly in
meeting this need. The current proposal, developed by the University of Georgia in close
collaboration with Bainbridge College, Fort Valley State University, Georgia Perimeter College,
Macon State College, Savannah State University, and Southern Polytechnic University, is
submitted to the National Science Foundation and requests $1,000,000 per year for five years to
support Alliance-wide and individual campus-based programming. The primary impacts will be
to enhance the recruitment and retention of minority students and double the number of such
students at participating universities overall who earn bachelor.s degrees in STEM disciplines.

Intellectual Merit
The shortage of American college graduates with technical and scientific training is well
documented, and the percentage of U.S. students entering colleges and universities with the
intention of majoring in STEM fields has steadily declined. Strengthening the STEM workforce
and its leadership is a priority concern if the U.S. is to maintain its economic leadership, security
and quality of life. Preparing African Americans, Hispanic Americans and other
underrepresented minorities for careers in these fields is a logical component of most strategies to
address these needs. It has an overwhelmingly compelling logic in a state like Georgia where
these minorities make up approximately 34% of the state.s population. Improving minority
involvement in undergraduate STEM fields is a complex problem. In Georgia, the development
of a dynamic statewide plan to address this problem requires initially that very different types of
institutions cooperate closely to achieve a shared, long-term goal in terms of the production of
minority STEM graduates. The current proposal is the result of such inter-institutional
collaboration.

Broader Impacts
In addition to its primary impacts, PSLSAMP programs will:

Provide opportunities designed to motivate students to pursue advanced
study,
Prepare students for graduate school,
Emphasize career opportunities in STEM fields,
Engage faculty and staff in the planning process and in professional
development activities to ensure institutionalization, and
Create a genuine partnership among institutions and organizations within
Georgia.

The University of Georgia will serve as the lead institution and fiduciary agent on behalf of the
Peach State Alliance and President Michael Adams, a research scientist himself, will serve as the
principal investigator and chair of the Governing Board. The Governing Board, along with the
Steering Committee and research faculty, will provide intellectual leadership to the Alliance.